Structural Relaxation in Oxide Glasses

The research deals with a study of the phenomena of structural relaxation in borate and silicate glasses. The objective is to achieve a fundamental understanding of these processes in various model glass systems as employed in fiber forming operations. The approach taken here is to employ both bulk analyses-thermal and optical properties, and analytical techniques which relate to the fine (electronic, atomic, molecular) structure of the material-nuclear magnetic resonance, X-ray photoelectron, and Raman spectroscopy. In addition, the data analysis will be conducted in reference to a theoretical model for structural relaxation in glasses, to provide a rational basis for the experimental work, and to provide the possibilities for improved theoretical modelling. This work is relevant both to the processing of bulk glass articles, as in the process of thermal tempering, or in the minimization of residual stresses through optimization of thermal history, and to the production of glass fibers for various purposes (as structural materials or optical waveguides), where the combination of thermal history and structural relaxation during the drawing process are crucial to the structure and properties of the glass fibers. In both cases, the fundamental scientific understanding of structural relaxation processes is crucial to improvements in materials and products.